CAREER: Efficient Indexing and Data Mining in Spatio-Temporal Databases

This research project will first develop efficient indexing strategies for spatio-temporal data sets. This will include access methods for future spatio-temporal queries as well as access methods for historical spatio-temporal queries. The next step will develop mining techniques for spatio-temporal databases. Finally the project will generate spatio-temporal data sets for experimentation. The career development plan will include two new courses on advanced database applications.